Electron Flow in Photosynthetic Bacteria

The specific objectives of this project are (1) to characterizethe cytochrome bc1 complex of a photosynthetic purple non-sulfur bacterium by resonance Raman spectroscopy and to characterize the binding sites on the complex for quinone, cytochrome c2 and the inhibitor antimycin A and (2) to compare the cytochrome bc1 complex and its soluble cytochrome c electron acceptor in apurple sulfur bacterium with those of purple non-sulfur bacteria. Also to compare the spectroscopic properties of these cytochrome bc1 complexes with the functionally analogous chloroplast cytochrome b6f complex. Emphasis is placed on unique aspects of bioenergetics in these bacteria or on the simplicity of processes in these bacteria compared to the analogous one in mitochondrial respiration. A number of spectroscopic (e.g., resonance Raman and electron paramagnetic resonance spectroscopy), biochemical (e.g., chemical modification of specific amino acids and photoaffinity labeling) and genetic techniques will be utilized in an attempt to provide details at the molecular level about these electron transfer reactions that are central to energy transduction in photosynthetic bacteria. %%% The energy needed for cell metabolism is generated through several different mechanisms. In this study, electron transport linked to an electrochemical gradient will be studied in a photosynthetic bacterium. This is a convenient experimental system because electron transfer can be started and stopped by turning light on or off.